Stress Resultant Constitutive Laws for Sheet Metal Forming

The objective of this research is to construct a physical- based plasticity theory that takes account for the plastic anisotrophy due to large plastic deformation and rotation as well as to study necking and failure criteria due to the growth of material inhomogeneity and/or geometric imperfection in sheet metal forming processes. The plasticity theory will be implemented into a finite element code to simulate sheet metal forming processes and the computational results can directly indicate the formability of the sheet metal forming processes. This project will allow the more efficient calculation of deformations in sheet metal forming, allowing industry to design and build more efficient sheet metal forming dies.